A Multisensor Study of Atmospheric Buoyancy Waves

The object of this research is the analysis and interpretation of an atmospheric undular bore (solitary wave) using existing observations taken by doppler radar, rawinsondes, satellites, conventional surface network of meteorological stations, and an instrumental tower (500 m). Existing theory of solitary waves will guide the analysis.